FRG: Topological methods in data analysis

DMS-0101364
Gunnar Carlsson

The overall goal of this project is to develop flexible
topological methods which will allow the analysis of data
which is difficult to analyze using classical linear methods.
Data obtained by sampling from highly curved manifolds or
singular algebraic varieties in Euclidean space are typical
examples where our methods will be useful. We intend to
develop and refine two pieces of software which have been
written by members of our research group, ISOMAP (Tenenbaum)
and PLEX (de Silva-Carlsson). ISOMAP is a tool for dimension
reduction and parameterization of high dimensional data sets,
and PLEX is a homology computing tool which we will use in
locating and analyzing singular points in data sets, as well
as estimating dimension in situations where standard methods
do not work well. We plan to extend the range of
applicability of both tools, in the case of ISOMAP by
studying embeddings into spaces with non-Euclidean metrics,
and in the case of PLEX by building in the Mayer-Vietoris
spectral sequence as a tool Both ISOMAP and PLEX will be
adapted for parallel computing. We will also begin the
theoretical study of statistical questions relating to
topology. For instance, we will initiate the study of
higher dimensional homology of subsets sampled from
Euclidean space under various sampling hypotheses.
The key object of study will be the family of Cech
complexes constructed using the distance function in
Euclidean space together with a randomly chosen finite
set of points in Euclidean space.

The goal of this project is to develop tools for
understanding data sets which are not easy to understand
using standard methods. This kind of data might include
singular points, or might be strongly curved. The
data is also high dimensional, in the sense that each
data point has many coordinates. For instance, we might
have a data set whose points each of which is an image,
which has one coordinate for each pixel. Many standard
tools rely on linear approximations, which do not work
well in strongly curved or singular problems. The kind
of tools we have in mind are in part topological, in
the sense that they measure more qualitative properties
of the spaces involved, such as connectedness, or the
number of holes in a space, and so on. This group of
methods has the capability of recognizing the number
of parameters required to describe a space, without
actually parameterizing it. These methods also have the
capability of recognizing singular points (like points
where two non-parallel planes or non-parallel lines
intersect), without actually having to construct
coordinates on the space. We will also be further
developing and refining methods we have already
constructed which can actually find good parameterizations
for many high dimensional data sets. Both projects will
involve the adaptation for the computer of many methods
which have heretofore been used in by-hand calculations
for solving theoretical problems. We will also initiate
the theoretical development of topological tools in a setting
which includes errors and sampling.